RUI: Nuclear Structure of Tellurium-126,-128,and -130

9971711
Vanhoy
Tellurium (Te) has a wide range of abundant stable isotopes. Three different types of structure are thought to be active in these nuclei: collective, two-particle, and particle-hole excitations known as intruders. Because there are seven stable even-even Te nuclei, one can study the evolution of these excitation modes over a wide range in neutron number. Emphasis centers on understanding the interplay between particle and collective features and on the aspects of the nuclear forces that determine the relative importance. In the tellurium nuclei several models are now able to reproduce the level scheme, however level lifetimes and transition rates are needed to further examine the detailed components of the wavefunctions. Excited levels in Te isotopes below 3.3 MeV will be studied at the University of Kentucky Nuclear Structure Laboratory utilizing inelastic neutron scattering techniques. Electromagnetic transition rates, multipole mixing and branching ratios, and level spins and parities will be deduced from measured gamma-ray excitation functions, gamma-gamma coincidences, angular distributions, and Doppler shifts.